Cellular Mechanisms of Temperature Acclimation

The goals of this project are (1) to learn molecular mechanisms of temperature acclimation, specifically protein synthesis, and (2) to examine differences in patterns of cellular compensation for temperature change between cultured hepatocytes and liver in vivo. Techniques to used include: (1) quantitative changes in specific protein concentrations by rocket immunophoresis (RIE) and enzyme linked immunoabsorbant assay (ELISA); (2) quantitative changes in activities, on both protein and DNA bases, of enzymes that we have found to show varying amounts of temperature compensation, (3) isozymal changes by gel electrophoresis, (4) identification of relative roles of transcription and translation in temperature- induced protein synthesis, and (5) estimation of hormonal action on acclimation of cultures hepatocytes and thus to note the validity of tissue culture for in vivo physiology. This research will add significantly to our understanding of adaptation of fishes to changes in temperature.